Dynamic Properties of Atomic States in Radiative Collisional and Autoionization Processes

9506853 Kissel This joint collaborative effort between American and Soviet scientists is to develop simple analytic models to describe the dynamic properties of electrons in electric fields, and the dynamic polarizability of Rydberg states. The results will be applied to experiments using trapped ions. ***